Computer Upgrade and Networking of Multi-User Spectroscopic Instrumentation

*** 9709014 KOPPANG This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at University of South Dakota upgrade their computer and network multi-user spectroscopic instrumentation. This equipment will enhance research in which the primary applications will center in the following areas (1) imaging surface-bound fluorescent tags within microscopic domains, (2) a complementary experimental and theoretical study of energy transfer mechanisms for isolated lanthanide(III)-ion pairs in CsM(II)X3 hosts, (3) studies of the enolization of carbonyl compounds, partucularly structural effects and electrophilic catalysis, and (4) spectroscopy and characterization of novel self-assembled isocyanide monolayers on gold. A network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-art graphics and visualization facilities, and supports research in applications of parallel processing. ***